Integration of Gas Chromatography/Mass Spectrometry into theUndergraduate Chemistry Curriculum

Gas chromatography/mass spectrometry is being incorporated into the undergraduate chemistry curriculum at both St John's University and the College of Saint Benedict. The mass spectrometer is being interfaced with a gas chromatograph which was previously present. The new system is being used to illustrate the principles and techniques of MS or GC/MS in the organic, physical, advanced analytical, and advanced inorganic courses, as well as student research. All of these areas are being expanded and enhanced by the acquisition of the mass spectrometer. Students are gaining a first hand knowledge of the diversity of applications for a GC/MS system. The grantee is matching the award from non-Federal sources.